Mathematical Sciences: Invariants for 3- and 4- Manifolds

The Principal Investigator will continue his study of the structure of smooth 4-manifolds, using techniques from geometry, analysis and gauge theory. At the heart of the investigation will be the classification of the diffeomorphism types of smooth 4-manifolds. Since space-time is a 4-dimensional manifold, the relevance of such investigations is plain.